RIG: Invasion Success, Genetic Diversity and Habitat Fragmentation in Populations of Introduced and Endemic Weevils in the Galapagos Archipelago

Unlike other oceanic archipelagos, Galápagos still retains most of its original species, but ecological degradation is proceeding rapidly. As in many other places, biological diversity of Galápagos is threatened by introductions of exotic species and reduction of continuous suitable habitat. Studying a group of closely related introduced and endemic weevils, this research investigates processes that can cause introduced populations to evolve rapidly, aiding their establishment and impact on native species. Additionally, it seeks to uncover the effects of reduced habitat connectivity on native species. Molecular tools will be used to assess the invasive potential of introduced populations and to measure potentially adaptive variation in both introduced and native populations.

The development of meaningful conservation measures requires scientific information, which often is scarce. This research will apply modern molecular genetic techniques to provide information needed to prioritize conservation management actions. With understanding of the root causes of the threats, the unique biodiversity of Galápagos can be protected and restored. Galápagos is a potential model region for biodiversity conservation, and effective management actions could be transferred to other less well-defined and well-studied ecosystems. Additionally, the project contributes to strengthening the work force of the future through high-quality mentoring and research-based training of many female and Hispanic undergraduates.